Standard Star Photometry at Three Declinations Around the Sky

AST-0097895
Landolt

The goal of Dr. Arlo Landolt's astronomical observational research project is to enhance, develop, and publish faint standard star sequences which are needed for a variety of scientific purposes. There occur projected against the celestial sphere a wide range of phenomena for which observers need intensity and color information. Therefore, there is a long-term need for accurate photometric standard stars, those with known intensities and colors at a variety of optical wavelengths. Use of such standard stars permits the combination and inter-comparison of the brightness and color measurements of different celestial phenomena made by different investigators. Furthermore, Dr. Landolt's standard star work will be an important step toward solving the calibration problems facing the new generation of giant telescopes.
***